Mathematical Sciences: Hilbert Modular Threefolds

This award, a Research Planning Grant, supports the work of Dr. Helen Grundman of Massachusetts Institute of Technology on Hilbert modular varieties of dimension three. Dr. Grundman will make use of the award to broaden her knowledge of number theory and algebraic geometry, and will familiarize herself thoroughly with the existing work on Hilbert modular surfaces in preparation for extending and generalizing this work to three-dimensional spaces. Non-Euclidean plane geometry began in the early nineteenth century as a mathematical curiosity, but by the end of that century, mathematicians had realized that many objects of fundamental importance are non-Euclidean in their basic nature. The detailed study of non-Euclidean plane geometries has given rise to several branches of modern mathematics, of which the study of modular and automorphic forms is one of the most active. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots.